Graph Orientations and Applications

Given a graph G=(V,E), an orientation O of G is an assignment
of directions to the edges of G. We may require that certain
properties must be satisfied by O. Varying the requirements,
different orientations can be defined. The orientations with
special properties often result in interesting combinatorial
structures.

Recently, several orientations of planar graphs have been
studied. They have important and sometimes unexpected applications
in fields such as graph drawing, VLSI layout, computer graphics etc.
These orientations often lead to elegant algorithms, which either
improve or simplify previously known algorithms.

The intellectual merit: The PI has recently obtained interesting
results using various orientations. The proposed research extends
these results. The proposed project will result in novel
combinatorial concepts and constructions and new algorithmic tools.
This research will make both theoretical and practical
contributions. On the theoretical side, several important
open questions in graph theory and combinatorics are among
the proposed problems. On the practical side, many problems
discussed in the proposal are motivated by applications in
graph drawing, computer graphics and VLSI layout problems.

The broader impacts: The results obtained from this research
will have impacts on practical fields such as graph drawing,
computer graphics and VLSI design, by providing better, simpler
and more efficient algorithms. It will also enhance graduate
education in computer science. The algorithms, concepts and
techniques developed in this research will be include in a new
advanced algorithm course.